Genetics of Protein Secretionin Escherichia coli

A study will be made of the secretion machinery in E. coli, involved in the export of proteins to the cell envelope. Various genetic selections and screening procedures to isolate mutants defective in components of this machinery. The mutants will define sec genes which will be cloned, sequenced and their gene products identified. The function of the sec gene products will be studied by examining in vivo phenotypes and behavior of sec mutant extracts in an in vitro system. New selection procedures will be developed. In one, a selection for derepression of a secA-lacZ fusion yields mutations in already known sec genes and in a new gene, secE. In a second procedure, selection for the inability to export bacteriophage lambda receptor to the outer membrane is carried out after a shift to a designated non-permissive temperature. In addition, procedures and mutants will be sought that allow a rapid shut-off of the secretion machinery after a shift to non-permissive temperature. Mutant selections will be used to define the components of the protein B-galactosidase that prevent it from passing through the cytoplasmic membrane. These studies may shed light either on the mechanism of protein passage through membranes or on protein folding pathways. This project is concerned with the mechanism by which proteins are transported (secreted) across membranes. Studies on higher organisms have led to formulation of the signal hypothesis in which the presence of an uncharged hydrophobic peptide (the signal sequence) facilitates transmembrane secretion. Signal sequences have subsequently been identified on bacterial proteins, thus allowing the powerful methods of bacterial genetics to be used to analyze the secretion machinery. A variety of selection procedures will be used to isolate bacterial mutants that are defective in secretion. These mutants will define the bacterial genes that participate in the secretion process and will allow isolation and characterization of the products of these genes. Upon completion, this project will provide a detailed picture of protein secretion in bacteria and will serve as a model for similar studies in higher organisms.